Dissertation Research: Physiological-Ecological Correlates of Hexose/Sucrose Preference in Neotropical Avian Frugivores

Plants pollinated by hummingbirds produce nectars containing mainly sucrose whereas those pollinated by perching birds produce mainly fructose and glucose (hexoses). A possible explanation for this pattern is that the nectars that plants produce are the result of selection by pollinators and that hummingbirds prefer sucrose over hexoses and perching birds prefer hexoses over sucrose. The question then is why do some animals prefer hexoses over sucrose? Sucrose must be hydrolyzed by an intestinal enzyme (sucrase) into glucose and fructose before being absorbed in the intestine. In man and other animals there is variation in the activity of these enzymes. At least some of this variation has been explained by dietary habits. Among birds the presence and activity of sucrase may be correlated with dietary habits. Species with diets high in carbohydrates should have higher sucrase activities than those whose diets are poor in carbohydrates. Thus, the dietary habits of birds strongly influence their preference and tolerance for simple sugars thus narrowing their spectrum of food choices especially in regard to fruit and nectar. The rewards offered by plants, therefore, probably reflect the evolutionary constraints imposed by the feeding habits of the birds that pollinate them or disperse their seeds. In this research the investigators will test these ideas in a neotropical community that includes several species of hummingbirds and perching-birds that visit flowers. Intestinal enzumes and sugar preferences will be assayed.